Ezhichigeyeg Anishinaabemag Mii Ge-ondaadiziyeg. What We Can Do to Help Our People Prosper.

The overall purpose of this project is to increase significantly the enrollment and
graduation rates of Indigenous students at Leech Lake Tribal College (LLTC) in science
and mathematics and to increase their familiarity of related technology. By achieving
these increases, and working through the other interventions that are integral to this
project, more students at Leech Lake Tribal College will choose to major in the math and
science disciplines and continue their education at a four-year institution. Their familiarity
with technology and its multiple uses will increase as well. The success of our proposal
requires that we recognize the importance of two concepts. First, academic success of
Indigenous students is clearly related to their feelings of self-worth and having a strong
sense of who they are. Second, their sense of identity is strongly tied to an Anishinaabe
focus throughout the LLTC curriculum.

Four components will make up this project. The current STEM infrastructure will be
enhanced; community centers where LLTC currently has internet connectivity and
computers will be improved to facilitate outreach efforts; a library learning center will be
developed; and student services attention to recruitment will be enhanced (Harper
2003). Each component interconnects not only with each other but also with barriers
associated with a social digital divide and with the four goals of the National Science
Foundation.